Collaborative Research: Development of a Facility for Global Lake Drilling and Testing in the Bonneville Basin

This award is for a testing operation for the GLAD800 drilling system, to be performed in Bear Lake and the Great Salt Lake, Utah. The project will be a collaboration among the University of Minnesota, the University of Arizona, and DOSECC, Inc. (Drilling Observation, and Sampling of the Earth's Continental Crust). The GLAD800 system is specifically designed to meet the needs of the terrestrial paleoclimate community by performing drilling operations on large lakes in order to obtain sediment cores that provide an archive of continental climate. The capital costs of the drilling system are being provided by the International Continental Drilling Program, and this award is for the testing of the system, to be accomplished by drilling and obtaining cores in Bear Lake and Great Salt Lake.